The Role of Biogenic Factors in Precipitation of Calcium Carbonate in Freshwater

In this two-year U.S.-Yugoslav cooperative research project in ecology between Dusan Srdoc, Rudjer Boskovic Institute in Zagreb and Stejepko Golubic at Boston University, the investigators will carry out a complete case study of a typical freshwater system. The study will focus on the Plitvice Lakes and waterfalls in the karstic region of Yugoslavia. The goal is to identify the principal biological activities that influence calcium carbonate formation of these waterfalls and travertine deposits. A multidisciplinary apporach will be used. The Yugoslav research team has expertise in aquatic chemistry and chemistry in general. The biological research will be carried out by the U.S. investigator. The U.S. scientist will determine the species composition and ecological role of organisms in forming cascades, and identify biological mineral formations. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.